Engineering Research Equipment Grant: Surface Analysis of Semiconductor Materials Using Combined AES/ESCA Techniques

The proposed research projects using the combined AES/ESCA techniques include: study of metal contacts on oxygen-chemisorbed III-V compound semiconductors, study of MISFET structures with III-V compound semiconductors, and application of ESCA to polymer surfaces. Efforts will be directed to understanding the effects of placing well-controlled amounts of oxygen on the clean, contaminant-free surfaces of those III-V compounds prior to the exposure of metals, through the comparison with no oxygen present at the semiconductor surface. Bonding information can be acquired via ESCA, which will be also utilized to observe the variation of surface band bending. Investigation of chemisorption, interdiffusion, and reaction effects can be accomplished by the combined AES/ESCA techniques. Trapping centers and impurity in insulator can produce large shifts in the C-V characteristics and in the flat band voltage. The effectiveness of reduction in the surface state density would depend on the bonding of the dielectric layer to the surface of semiconductors. Both processes can be carefully studied by the application of ESCA and AES techniques. Fatigue behavior will be examined as a function of surface composition and structure for polymer composites and blends.